Collaboratory For Microscopic Digital Anatomy

9318180 Ellisman The increased availability of High Performance Computing and Communications (HPCC) offers scientists the potential for effective remote interactive use of centralized, specialized, and expensive instrumentation and computers. The goal of this national challenge project is to design and implement a collaborative computational environment, or Collaboratory for Microscopic Digital Anatomy, providing a researcher at a remote site distributed interaction with unique instrumentation for the acquistion and manipulation of images of biological structure. The initial focus will be on the development of an integrated system for remote interactive acquistition and analysis of 2- and 3- dimensional light and electron microscopic data from digital image acquistion systems. To accomplish this task, a multidisciplinary team representing several institutions including the University of California , San Diego, Cornell University and the Center for Computer Graphics and Scientific Visualization, and the San Diego Supercomputer Center, has been assembled, including computer scientists specializing in HPCC and volume visualization, and biologists with expertise in computer-aided light and electron microscopy. This award will enable these activities. This project is being supported by several programs at NSF: New Technologies in Computer and Information Science, Cell Biology, Computational Neuroscience and Computational Biology.